A Community to Develop Materials for an Engineering Learning Environment

Faculty members attempting to create materials for collections of engineering education
content in a digital library face several challenges. Lack of training in sound pedagogical
practices, a shortage of training in the effective use of educational technology, short
supply of required resources and time to produce completed and tested works, and a lack
of emphasis on improved teaching in the university faculty rewards systems are the major
obstacles to materials development. To remedy this situation, this project endeavors to
create an active, engaged, and sustained virtual community of engineering educators who
energetically contribute to and share materials from a common collection of courseware.
The virtual community is taking form as an incubator in which faculty are trained in
sound pedagogical practices e.g., developing learning goals and assessment techniques.
Next, participants are schooled in the effective use of technology in many different
teaching/learning situations including: classroom presentation, self-study, distance and
distributed learning, experiential learning, etc. Once trained, faculty then develop a
portion of a collection of courseware modules in their area of expertise. Guidelines are
provided so that modules can be integrated with each other from both the standpoint
of technology mix as well as the pedagogical approach being used. Members of the virtual
community of contributors subsequently become the testers of the courseware modules,
with each of the contributors using a subset of modules to conduct courses at their
home campuses. As soon as a baseline collection in a topic area is established the project
personnel will present national workshops on how to adopt and adapt the materials in the collection.
NEEDS will be used to catalog and make the collections available.

Keywords: Virtual community, NEEDS, digital library